Artificial Intelligence Applied to Mechanical Design and Manufacturing

The quality of engineering design is a critical factor in the competitive success of industries. The new technology in computer-aided-design has improved the support available to designers in some areas, but has made the lack of fundamental understanding of engineering design more obvious and more critical. A set of generalized tools and constructs will be developed for the design process which can be specialized for any particular design domain. The research will focus on the following areas: creating a design=